Acquisition of Paleomagnetic Equipment

This award provides 50% funding for the acquisition of equipment for the Paleomagnetics Laboratory at the Michigan Technological University. The University is committed to providing matching funds for the purchase of the equipment, which includes a spinner magnetometer, alternating field demagnetizer, and Curie balance. It will be installed in the Department of Geological Engineering, Geology and Geophysics, and will be used by members of the Department in research projects to determine the geologic history of magnetic pole wandering and the effect of low- temperature oxidation on the magnetization of rocks.